CyberAI SFS: Educating Florida's Federal CyberAI Workforce for Secure AI in Space, Defense, and Modeling and Simulation

Artificial intelligence (AI) is rapidly becoming part of the technologies used to operate government services, protect critical infrastructure, and support national security missions. As these technologies become more widespread, the nation faces a growing need for cybersecurity professionals who can both apply AI to strengthen cyber defense and secure AI-enabled systems against emerging threats. This project will address that need by preparing a new generation of cybersecurity professionals with expertise at the intersection of cybersecurity and AI. Through scholarships, training, research experiences, and workforce preparation activities, the project will strengthen the federal cybersecurity workforce and support the secure adoption of AI technologies across government systems. By preparing professionals capable of protecting critical infrastructure, government information systems, and national assets, the project will contribute to the nation’s security, prosperity, and technological leadership.

The project will establish a CyberAI Scholarship for Service (CyberAI SFS) program that will support cohorts of undergraduate and graduate scholars. The program will combine advanced cybersecurity coursework, formal AI training, a dedicated course on trustworthy and secure AI systems, faculty mentored research experiences, cybersecurity competitions, experiential learning activities, internships, and AI-enabled capstone projects. Scholars will receive training in areas including adversarial machine learning, AI robustness, privacy-preserving AI, large language model security, AI-assisted threat detection, and secure deployment of AI systems. Leveraging the University of Central Florida’s established cybersecurity infrastructure, CyberCorps Scholarship for Service program, cybersecurity laboratories, and partnerships with federal agencies and national laboratories, the project will provide scholars with exposure to cybersecurity challenges in defense, space, and modeling and simulation environments. The project will contribute a workforce-development model for integrating cybersecurity and AI education while preparing graduates for federal service positions involving AI-enabled cyber defense, secure AI deployment, vulnerability analysis, and protection of mission and operational systems.

This project is supported by the CyberAICorps Scholarship for Service (CyberAI SFS) program which funds proposals to increase national capacity to educate and train professionals in Artificial Intelligence (AI) or Cybersecurity, and to support their placement and retention in the CyberAI mission of government organizations. The Scholarship Track funds academic institutions to award scholarships to students in exchange for their government service. The Innovation Track seeks transformative education proposals in the areas of AI, cybersecurity, or the integration of AI and cybersecurity.